ITR: New technology for the Capture, Analysis and Visualization of Human Movement

The PIs propose to establish a five-year ITR program that will lead the development of the next generation distributed video sensing systems for understanding human movements. Novel models of human movement and structure will be used for modeling the movements of singe-joint and whole bodies with applications to animation, biomotion, and gait analysis for diagnosing and treating movement-related disorders. The interdisciplinary team includes leading researchers from three core institutions - the University of Maryland (lead institution), Stanford University and New York University. The researchers cover a broad spectrum of interests, including biomechanics, computer science and engineering, electrical engineering, and kinesiology. The proposed research efforts will enable novel approaches for realistic animation and the detection of subtle variations in movement, leading to better diagnostic tools and personalized programs for rehabilitation of movement disorders. Strong educational and industrial outreach programs will also enhance our research program.